Statistical Signal Processing and Communication Within Subbands

The efficient use of bandwidth for multimedia information transmission depends on the efficient use of imperfect channels, such as coaxial cables and optical fibers. This means redundant information must be removed and what remains must be coded for reliable transmission. This research is addressing the problems of redundancy removal (source coding) from the point of view of multichannel filterbanks; it is also addressing the problem of efficiently implementing filterbanks in digital electronics. Specifically, we are studying applications of undersampling operators, oversampling operators, and tight frames to source coding, channel coding and halftoning. The aim of this research is to develop efficient state variable realizations for tight frames and related maps, and to determine the computational complexity and performance characteristics of these realizations. Of particular interest are sum of all-pass realizations for multichannel filterbanks. The results will produce insights and design rules for implementing source coders and channel coders in state variable filterbanks that have good numerical properties.